Learning and Optimization-Powered Quickest Change Detection: Theory, Algorithms and Applications for Power Systems

Power grids are the backbone of the national economy, yet they are increasingly exposed to extreme weather events, infrastructure failures, and market shocks. Similar to how missing early signs of seismic activity results in catastrophic consequences during earthquakes, failure to detect and respond to anomalies in frequency readings and price signals results in significant operational and social losses. The U.S. Department of Energy estimates that the grid costs the economy over $150 billion annually in outage-related losses alone. This NSF project aims to develop principled algorithms for the fastest possible detection and identification of anomalies in power grids, such as generation and transmission failures, and electricity market manipulations. The project will bring transformative change to how operators, utilities, and regulators monitor and quickly respond to critical events, reducing the risk of blackouts and associated economic losses. The intellectual merit of the project includes advancing the mathematical and algorithmic foundations of sequential anomaly detection by extracting and fusing useful structural information from domain machine learning and optimization models with new advances in sequential inference theory. The broader impacts of the project include improved grid reliability and resilience, enhanced competitiveness of electricity markets, training of the next generation of engineers at the intersection of power systems and statistical machine learning, and open-source tools and datasets for the research and practitioner communities.

This project addresses fundamental limitations of existing quickest change detection (QCD) theory that underlies algorithms that continuously monitor data streams and raise an alarm as soon as an abrupt statistical change can be confirmed, when applied to real-world power systems. Classical QCD methods either rely on restrictive distributional assumptions that rarely hold in practice, or achieve robustness at the cost of prohibitively slow detection. The project resolves this tension through three interconnected research thrusts. The first develops machine learning-powered QCD algorithms that safely incorporate outputs from predictive and generative models into statistically rigorous evidence measures, called e-processes, which provide finite sample false alarm guarantees while accelerating detection. The second thrust develops quickest change detection and identification algorithms that enable not only detection but also identification of specific grid events and root causes underlying the shift in data streams. This is achieved by incorporating optimization and network structures in grid operations. The third thrust applies and stress-tests these algorithms on operational and market data from power systems, revealing fundamental robustness-delay tradeoffs and paving the way toward practical deployment.